Research Participation for High School Students

The proposed seven-week summer program for 30 high ability secondary school students consists of two parts. In Part I students will spend 90-minutes per day attending lectures, discussions and experiements on topics outside of the high school or college curriculum. Three mini- courses will be offered: 1. Phenomena of Light and Color in the Open Air; 2. Frontiers in Astrophysics; and 3. Lasers and Holography. In Part II of the program participants will work in ongoing research programs as junior members of research teams consisting of professors, graduate, undergraduate and high school students. During the last week of the program, all participants will have the opportunity to discuss their work before the group.